Reactive Polymers: Applications in Organic Synthesis

The focus of this research has three parts. First, polymers with functionalized cross-links and cyclopolymerized functional monomer units will be studied. Second, new linker strategies for synthesis, several of which reveal latent reactive functionality, will be developed and generalized. Third, novel approaches to heterocycle synthesis employing C-C bond formation will be investigated. Emphasis will be placed on applications of polymer chemistry that address synthetic problems which cannot be readily or as efficiently solved in other ways.

With this renewal award, the Organic and Macromolecular Chemistry Program is supporting the research of Drs. Mark J. Kurth and Neil E. Schore of the Department of Chemistry at the University of California-Davis. Professors Kurth and Schore will focus their work on developing methodology for the preparation and evaluation of reactive polymer systems for use in organic synthesis. The work has broader impacts for the training of graduate students and in the area of combinatorial chemistry.